Snapshots of Applications in Mathematics

In this project at least 100 short case studies or mathematical "snapshots" are being created. Each is designed to encourage appreciation of mathematics among under-achieving and under- motivated students. Following the compilation of these modules involving substantial library research and industry support, they will be class tested at several institutions. The project's short case studies differ from existing case studies (UMAP, C0MAP, etc.). They require few prerequisites, are shorter, rely mainly upon oral presentation by instructors, and are adaptable to a broad range of textbooks. They are supplements to existing course work designed to motivate student interest in the subject matter and to show its relevance. Among the studies' goals is highlighting contributions of under-represented groups, thereby providing role models for students. The project is based upon preliminary work which yielded promising results. The studies are being drawn from a broad range of fields, all highlighting a "snapshot" of applied mathematics. After classroom testing, the project concept and results will be disseminated by a regional seminar. During this seminar, not only will participating instructors learn about the project and receive a booklet containing the developed modules, but these faculty will also be provided the skills and knowledge necessary to design and implement studies for their classrooms.